The Role of Fish Introductions and Eradications on Community Assembly in Ponds

It is well-known that the introduction of predators into ecosystems in which they were not historically present can dramatically reduce local biodiversity. Yet the effects of predators at larger spatial scales may differ substantially from their local effects if predators alter the mechanisms by which communities assemble. This study will explore how the introduction and eradication of fish predators in previously fish-free freshwater habitats affects patterns of community assembly and the resulting local and regional biodiversity. First, an experimental pond array will be constructed to test for the causal relationship between fish introductions and biodiversity at different spatial scales. Second, in cooperation with public agencies and private landowners, the PIs will experimentally determine if eradication of introduced fish successfully restores local and regional biodiversity, or whether other interventions are also needed.

Overall, this project will advance the understanding of how predator introductions and eradications structure biodiversity at different spatial scales. Furthermore, information from this project may ultimately lead to new practices for restoring biodiversity at large spatial scales, including protected natural areas. In addition to providing invaluable training for future scientists by incorporating several graduate and undergraduate students, this research will be integrated with an outreach program consisting of in-depth research experiences for Saint Louis, Missouri, area high school students.